International Discussion Meeting on Relaxations in Complex Systems; June 18-26, 2001; Hersonissos, Crete, Greece

Relaxations and diffusion play an important role in many branches of science, technology and engineering. Relaxation phenomena occur widely in physics, biophysics, chemistry, materials science, metallurgy, rheology, glass sciences, polymer/biopolymer physics and engineering, colloids, fiber optics, opto-electronics and electronics. It is the primary concern in basic physics as well as in very practical applications. The wide variety of areas in which relaxation enters into consideration demonstrates its interdisciplinary nature. Research finding in the last decade have shown common features of relaxation phenomena in different materials that are often studied separately in different specialised and isolated fields. This remarkable commonality of properties of relaxation in complex materials suggests an exciting opportunity for rapid development in all the specialised fields by a multidisciplinary approach.
%%%
Recognising the importance of providing a channel of communication between workers on relaxation phenomena in different materials and fields and the benefit it will bring to many research disciplines, a "Discussion Meeting on Relaxations in Complex Systems" is being organised in Crete, Greece, June 18th - 26th , 2001. The objective of this NSF support is to help young and other investigators from academia in the United States to pay for the registration fee and, if there is sufficient money, part of the travel cost for attending this International Discussion Meeting.